III: Small: Active Learning of Language Models for Information Extraction

This project studies methods for extracting accurate knowledge bases from the
Web. Fully-automated Web information extraction techniques are massively
scalable, but have accuracy and coverage limitations. This proposal
investigates how to improve automated extraction techniques by introducing
carefully-selected human guidance. The proposed system continually extracts
knowledge from the Web, along the way dynamically synthesizing and issuing
queries to humans to increase the accuracy of the system's knowledge base and
extractors.

The approach extends the PI's previous work utilizing statistical language
models (SLMs) for information extraction. Novel SLMs are investigated for
unifying the extraction of relational data expressed in Web tables with
extraction from free text. New active learning techniques utilize the models
to identify "high-leverage" queries -- requesting, for example, textual
extraction patterns that when retrieved from the Web yield thousands of novel
extractions. The queries investigated are mostly amenable to non-experts,
meaning that much of the human input can be acquired at scale via online
mass-collaboration.

The broader impact of this project lies in the potential for accurate Web
extraction to radically improve Web search, allowing users to answer
complicated questions by synthesizing information across multiple Web pages.
In domains like medicine and biology, mining extracted knowledge bases could
lead to important discoveries and novel therapies.

Further information may be found at the project web page:
http://wail.eecs.northwestern.edu/projects/activelms/index.html